Interregional Connectivity for JvNCnet

9321107 Heker This award assists the regional network, JvNCnet, in obtaining connectivity to other regional networks in the United States and to the rest of the Internet. The award made under the guidelines published in the NSF Program Solicitation 93-52, funds one connection providing 45 million bits per second service over an anticipated duration of 4 years.